A (mostly) Observational Study of Microearthquakes on a Bimaterial Interface

For three decades it has been anticipated that earthquake ruptures along an interface separating
materials with different elastic properties will have a favored propagation direction, that being the
direction of motion of the more compliant material. However, observing this tendency on natural
faults has been difficult, in large part because of the small number of significant earthquakes on
faults with a well-characterized velocity contrast. The PI has used spectral ratios to directly estimate
directivity in a catalog of over 3,000 small earthquakes along a 30-km section of the San Andreas
fault with a large and well-characterized velocity contrast. The spectral ratios were fitted with a
simple moving point source model in which each modeled earthquake has four parameters: two
rupture lengths (one to the SE and one to the NW) and their propagation velocities. Nearly 900
earthquakes, mostly those larger than 70 m, appear reasonably well resolved. The inversion results
suggest that 40% of the well-resolved events are roughly bilateral, although more than 80%
of the 144 events classified as strongly unilateral rupture to the SE, consistent with the theoretical
prediction. For those rupture halves that were large enough for the propagation speed to be
somewhat resolved, that speed was greater by roughly 10% for those halves propagating to the SE,
qualitatively consistent with numerical and laboratory experiments. They find that events with
nearby (in space and time) foreshocks tend to rupture away from those foreshocks, whether to the
NW or to the SE, indicating that asymmetry of prior stressing history can exert a stronger influence
on rupture directivity than the material contrast.
A major goal of the proposed work is to greatly increase the size of their database in both
space and time. This will allow them to explore how the correlation between foreshock
location and mainshock directivity decays with increasing spatial and temporal distance between
foreshock and mainshock, whether the apparent lack of correlation between mainshock directivity
and aftershock asymmetry we have observed stands up to a larger data sample, and how these
behaviors correlate with the local across-fault velocity contrast. The investigators will also undertake a systematic search for asymmetry in the location of sub-events in compound earthquakes, and begin
numerical modeling of earthquake nucleation on a bimaterial interface, with the specific goals of
understanding the aforementioned decay of the influence of foreshocks on mainshock directivity,
and the influence of the bimaterial contrast on earthquake nucleation generally.

Large faults that are capable of producing damaging earthquakes have also slipped large distances,
and so they often juxtaposes rocks with different mechanical properties. It has long been
predicted that earthquakes on such faults could have a preferred propagation direction. Establishing
whether this is actually the case is relevant to hazards mitigation because there is much stronger
ground shaking in the direction that the rupture propagates; it has even been proposed that building
codes could be altered to reflect this. This gives the earthquakes we are examining an importance
which surpasses their small size. Their usefulness lies in their large number, so that the results
are statistically meaningful, and in their ability to teach us about connecting numerical models of
earthquake rupture to real earthquakes generally.